Collaborative Research: Mapping how the intrinsically disordered regions affect the search and binding of heterochromatin-associated proteins in living cells

How genetically identical cells develop into diverse cell types is a fundamental question in biology. This cellular diversification relies on epigenetic silencing, a process in which specific genes are turned off without altering the underlying DNA sequence. In living cells, proteins compete to bind to specialized chromatin regions to maintain this silent state, and if this balance is disrupted, cells lose their epigenetic identity, which can lead to developmental failures. This project investigates how these proteins navigate the crowded environment of a cell to find and bind to their targets. While scientists traditionally focus on the structured parts of proteins, this research explores the role of flexible and unstructured intrinsically disordered regions (IDRs) whose chemical properties are poorly understood. By decoding how IDRs regulate subcellular interactions, this project directly advances biotechnology by uncovering the fundamental design principles needed to engineer synthetic, predictable proteins for targeted gene regulation and cellular reprogramming. Beyond its technological and scientific contributions, the project bridges biochemistry, physical chemistry, and biology to offer an interdisciplinary training framework. The researchers will translate their discoveries into collaborative, hands-on demonstrations for middle school students, interactive classroom lectures, and direct laboratory research mentorship for undergraduate students.

The primary objective of this collaborative project is to determine how the dynamic recruitment and retention of histone H3 lysine 9 methylation (H3K9me)-binding proteins regulate the establishment of stable and heritable gene expression states in living cells. Using the fission yeast Schizosaccharomyces pombe as a minimal model system for epigenetic silencing, the project focuses on three primary H3K9me-binding proteins: two HP1 orthologs, Swi6 and Chp2, and the methyltransferase Clr4. While structured chromodomains dictate H3K9me specificity, preliminary data indicate that the millisecond-scale kinetics of target search and binding are modulated by unstructured IDRs. Because IDR functions are governed by overall chemical properties rather than strict sequence conservation, this project leverages evolutionary relationships across the Schizosaccharomyces lineage to map conserved principles of IDR chemistry. The research is organized into three specific aims: (1) determining how IDR sequence composition affects the real-time binding and unbinding kinetics of Swi6 through targeted mutations and IDR swapping; (2) measuring the target search kinetics and catalytic activity of Clr4 mutants with targeted IDR modifications using live-cell imaging and biochemical assays ; and (3) investigating how altered search and binding kinetics impact the long-term stability of epigenetic silencing by tracking gene expression changes within single-cell lineages. Ultimately, this multi-scale approach leverages advanced methods like single-molecule tracking, microfluidics, and genetic engineering to uncover the molecular principles governing how IDRs regulate protein-chromatin interactions in vivo.